Recycling Technologies in Integrated Papermaking System

9452181 Rudnick-Kaun This project will provide an integrated systems approach to the laboratory environment of the Pulp and Paper Chemical Technology associate degree program with additional benefits to students in the Natural Resources Technology program. This project responds to the local paper industry needs for trained graduates to work in integrated and automated manufacturing and research operations performing product analysis and process control using computerized data systems. The requested equipment is geared toward the rising industry standards for using increasing amounts of recycled fiber in the paper making process. Current manual equipment in the laboratories limits the curriculum to experimenting with fragments of the systems process. This project elevates the competency level of the curriculum by creating the potential for a new range of Laboratory experimentation. This curriculum will be shared with other college and university pulp and paper science programs challenged with educating students for employment in this dynamic industry.